CAREER: Semantics-based Program Analysis via Symbolic Composition of Transfer Relations

9702805 This project investigates the task of automatically determining properties of the run-time behavior of computer programs before the programs are actually executed. Optimizing compilers have long motivated research in this area, commonly known as static program analysis. More recently, there has been interest in using program analysis to verify correctness or safety properties of software before it is put into service. However, due both to the phenomenon of accumulated imprecision, which is akin to accumulated rounding error, and to the inadequacy of invariant properties in the presence of loops and recursion, useful and accurate program analysis is hard to achieve in practice. This project examines a new methodology for program analysis designed to address these problems. This methodology is distinctive in that it does not analyze execution states, but instead analyzes the changes, called transfer relations, between those states, thus enabling previously unsolved analyses of programming constructs such as first-class functions, concurrency, pointers and references, assignment, mutable data structures, and arrays. The research investigates the application of these analyses to urgent issues such as ensuring safety of untrusted foreign code and increasing reliability of large software systems. The project applies this research to an educational plan including course development, mentoring of masters students, and the development of an annual summer school on program analysis, including a new text. ***